U.S.-Polish Collaborative Research: Production Mechanism andInternal Structive Studies of Exotic Mesons

9514904 Ji This U.S.-Polish Cooperative Research award is to study "Production Mechanism and Internal Structive Studies of Exotic Mesons" The principal researchers for the American side are Dr. Chueng-Ryong Ji, Dr. Adam Szczepaniak, Dr. Stephen R. Cotanch, and Dr. Eric S. Swanson, all of North Carolina State University. The principal researcher for the Polish side is Dr. Leonard Lesniak of the Institute of Nuclear Physics in Krakow. The recent advent of CEBAF will help researchers obtain more accurate information on production mechanisms and the internal structure of mesons. The planned experiment on p(e,e'f0)p at CEBAF especially will shed light on present speculations about the exotic internal structure of scalar mesons. Through this award, the researchers will discuss two projects for the theoretical investigation of the production mechanism and the internal structure of mesons: (1) electroproduction and photoproduction of scalar mesons; (2) improved constituent quark model. The first project will merge the expertise of the Krakow group on the coupled channel model of scalar meson production mechanism with the program at North Carolina State University on the meson photo- and electro-production analyses. They will investigate the production mechanisms of f0,a0 and mesons using the channel coupling formalism of and KK developed by the Krakow group. In the second project, they propose to improve the existing constituent quark models of the ordinary mesons by including some of important QCD effects, in particular chiral symmetry breaking and nonvalence degrees of freedom. The aim of this project is to construct a constituent quark model which can describe both the ordinary mesons and the suspected exotic mesons such as scalar mesons, glueballs and hybrid mesons. However, at the minimum, the researchers propose to build the model that would lead to a spontaneous symmetry breaking and dynamically generated quark and gluon masses and calculate the s pectra of mesons including some of the suspected exotic mesons. This research in physics fulfills the program objectives of bringing together leading experts in the U.S. and Poland to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit. ***